Presidential Young Investigator Award

The research of this Presidential Young Investigator is in the artificial intelligence fields of learning and automated reasoning. Because computers require an explicit model of a system to perform reasoning and the character of the reasoning depends critically on the nature of the model, great leverage can be obtained by enabling programs to reformulate their models dynamically. The investigator has pursued reformulation in his work on aggregation and the comparative analysis techniques of differential qualitative analysis and exaggeration. He will now incorporate ideas from machine learning to aid in the reformulation task. One specific project is to generalize current schemes for model reformulation. The limits of applicability for each model will be represented explicitly in a language based on the simplifications implicitly assumed by the model. A second project is a restricted form of theory formation: the automatic construction of world models. Here the approach is to generalize previous work on measurement interpretation and view application by characterizing the program's views with the modeling language described above.